Student Weather Experiment-National Balloon Launch

The objective of the proposed work is an experiment wherein school students will track a radiosonde balloon as released by the National Weather Service at the usual times of observation. Five hundred public school will participate throughout the US, as part of National Science and Technology Week.//